IPSET: Integrated Physical Science for Elementary Teachers

This approximately 42-month leadership project is a cooperative effort of the University of Virginia, and the Charlottesville City and Albemarle County School Systems. It will prepare 20 three-member teams of lead teachers with a combination of integrated physical science content mastery, conceptual thinking skills, constructivist learning concepts, hands-on teaching methods, and leadership abilities. The project will be conducted in two over-lapping phases of approximately 28 months each, and will provide the 60 participating teachers with 270 contact hours (9 credit hours) in courses that integrate physical science, appropriate methods of science education, and strategies for effective leadership. It is anticipated that all of the 130 K-8 classroom teachers from the Charlottesville City schools, and many from Albemarle County will be reached through inservices and support provided by the lead teachers, the principals, and the project staff. This leadership project is appropriate for the Teacher Enhancement Program because of its well-developed plan to prepare lead teachers in science and, with their assistance, to provide science inservice for all of the elementary classroom teachers within the city district and of the teachers from participating schools in Albemarle County. The cost-sharing amount to be contributed by the University of Virginia is approximately 27% of the amount requested from NSF.